SBIR Phase II: Integrated Circuit Design for Biological Data Transmission

This Small Business Innovation Research (SBIR) Phase II Project proposes to develop, test, market and produce low-power wireless headstage systems for the neural prosthetic market. The wireless neural headstage devices will be able to transmit and to receive sixteen electrodes sourced from a patient. The analog signals will be encoded and transmitted wirelessly to a remote receiver where they will appear on a 16-channel connector. The wireless headstage technology will replace the tethered connections and create a more natural and productive laboratory environment for patient data acquisition. Ultimately, wireless technology will improve the quality of life for anyone using a commercial neural prosthetic device by offering extended freedom of motion, improved product safety and reliability, and less visual distractions.

The primary commercial application of this project is in the wireless neural prosthetic market. Additional applications are expected in the biomonitoring business markets, such as for electrophysiological patient testing and monitoring.